Toward a Conceptual and Captivating Calculus

The objective of this calculus planning grant at Miami University in Ohio, is to develop a lean and lively calculus syllabus for college students who have had calculus in high school. After consultation with scientists from client disciplines on the current uses of the calculus, materials incorporating computers will be developed to run a preliminary experiment. At the end of one year, a large scale controlled experiment with teaching and computing materials will be ready. Miami University will co-fund over a third of the project.